Evaluate the use of a portable multi-modal physiological monitoring system in the virtual reality environment for the assessment of mild traumatic brain injury

UCSD and FDA will jointly develop and test a wearable and easily deployable system, based on virtual-reality goggles, to collect synchronized brain and biometric signals from mild traumatic brain injury (TBI) patients and healthy participants. They will also develop advanced computational approaches to identify abnormal biomedical signals associated with TBI. The goal of this project is to test the feasibility of using a portable, compact, and deployable system as a pre- and post-hospital diagnostic and monitoring tool of TBI.

UCSD and FDA jointly propose an intense, twelve-month program to design, develop, fabricate and test a wearable and easily deployable system, based on a Virtual-Reality (VR) Head-Mounted Display (HMD), to collect synchronized neural and physiological data from TBI patients and healthy participants. The use of VR HMD allows the use a compact form factor for collecting multi-modal bio-sensing data in a comfortably wearable manner, providing unprecedented opportunities to assess and evaluate the brain and mind under various cognitive tasks immediately after an injury (i.e. pre-hospital care)
The objective of this project is to determine the utility of a portable and multi-modal physiological signal monitoring system as a diagnostic and monitoring tool of TBI.